Measuring Multiple Nuclides in Iron Oxides: Expanding Cosmogenic Nuclide Studies into New Lithologies

Over the last 25 years cosmic ray produced (cosmogenic) radionuclide techniques for earth sciences have revolutionized the understanding of processes at the Earth's surface. Most of these investigations utilize in-situ produced cosmogenic 10Be and 26Al in quartz, due in part to the ubiquity of this mineral, and in part because of the availability of Accelerator Mass Spectrometry (AMS) sample preparation protocols that are accessible to the earth science community. Since the development of the method, measurements of 10Be and 26Al in quartz have been used to provide empirical constraints and answer fundamental outstanding questions throughout the fields of geomorphology, climatology, archaeology, ecology, seismology, and geophysics. This investigation will develop a routine, robust standardized approach for measuring multiple cosmogenic nuclides in the iron oxide, magnetite, providing a powerful new tool for earth scientists working across many disciplines.